U.S.-Argentina: Fundamental Studies of NOx Control in Catalytic Combustion

9301588 Marcelin This U.S.-Argentina Science Program award will support the collaboration of George Marcelin of the University of Pittsburgh and Eduardo Lombardo of the School of Chemical Engineering in Santa Fe, Argentina. The project aims to study the catalytic combustion of methane and the formation and destruction of NO using perovskite-type oxide catalysts. Natural gas is an important fuel for stationary energy generation. However, Nox emissions from natural gas combustors, particularly those that operate at high temperatures, are of increasing environmental concern. Development of a successful NOx control process requires a fundamental understanding of the principles of NOx formation and of the chemical interaction of oxygen and nitrogen species with the catalytic surface. This project will combine catalytic combustion and NOx destruction in one catalyst formulation, in order to explore the role of the catalytic surface in forming and destroying NOx and to identify intermediate species. In addition to classical techniques of catalysis research, steady state isotopic transient kinetic analysis will be used to study the reaction pathways, intermediates, and active catalytic surface. IR and NMR spectroscopic studies of adsorbed species will help identify the intermediates on the catalyst surface and the reaction paths that form them. The Argentine group has expertise in perovskite preparation and characterization. The U.S. group has expertise in NMR characterization and isotopic transient kinetic analysis. ***